13th IEEE Real-Time and Embedded Technology and Applications Symposium and Workshops

This award provides support for the 13th IEEE Real-Time and Embedded Technology and
Applications Symposium (RTAS 2007), and its affiliated workshops, in April, 2007. The symposium serves as a public forum to explore new research challenges and discoveries in the areas of real-time computing and embedded computing. These are foundational technologies for a broad range of industrial and government applications.